Computer Interfacing and Computer Modeling in the Chemistry Curriculum

The Department of Chemistry is integrating the applications of computer interfacing and computer modeling throughout the curriculum. Data acquisition systems are being used in the accelerated general chemistry and junior level physical chemistry laboratories. Molecular modeling applications start in the first-year course and extend through the whole curriculum.